PostDoctoral Research Fellowship

This award is made as part of the FY 2014 Mathematical Sciences Postdoctoral Research Fellowships Program. Each of the fellowships supports a research and training project at a host institution in the mathematical sciences, including applications to other disciplines, under the mentorship of a sponsoring scientist. The title of the project for this fellowship to Daniel A. Cristofaro-Gardiner is "Embedded Contact Homology, Contact Dynamics, and Symplectic Capacities." The host institution for the fellowship is Harvard University, and the sponsoring scientist is Dr. Clifford Taubes.